NanoEHS: A Workshop Focused on Fundamental Science Needs, November 1, 2014, Boston, MA

CBET - 1441457
This proposal is to conduct a workshop to examine fundamental science needs in NanoEHS. Research in this topic has reached a plateau of understanding by using fundamental testing methods. New approaches to deeper scientific questions are needed. The workshop will identify new questions in order to bring a better understanding of the interactions of nanomaterials with living systems.

The goals of the workshop are as follows:
1. Engage a broad range of participants to focus on the theme of the workshop topic NanoEHS: Fundamental Science Needs
2. Identify areas where fundamental studies are needed to better understand NanoEHS.
3. Identify challenges and opportunities in understanding NanoEHS: Fundamental Science Needs, i.e. identify problems, techniques and methods including, but not limited to, the role of computation and theory, size-dependent behavior for very small particles such as quantum size effects, and surface structure.
4. Articulate the importance of fundamental physics and chemistry within interdisciplinary approaches to NanoEHS: Fundamental Science Needs and identify opportunities for collaboration.
5. Prepare a manuscript to a journal that summarizes and highlights the workshop discussion and findings.
6. Disseminate workshop findings further in a symposium at an upcoming Sustainable Nanotechnology Organization (SNO) Meeting or some other appropriate meeting venue.